Geometry and Topology of Symplectic Four Manifolds

Proposal: DMS-9975469

PI: Tian-Jun Li

Abstract: The focus of this project is to apply methods from differential topology,
geometric analysis and algebraic geometry to study symplectic four manifolds.
For symplectic four manifolds, the equivalence between Seiberg-Witten invariants and the
symplectic Gromov-Taubes invariants has led to many striking results in symplectic topology. In collaboration with Liu, Li has set up the parametrized Seiberg-Witten theory and derived a wall-crossing formula.
The parametrized Seiberg-Witten theory is particularly interesting for
families of symplectic manifolds. Li proposes to develop further the parametrized Seiberg-Witten and the parametrized Gromov-Taubes theories and show
that these two theories are equivalent for symplectic families.
The parametrized theories should be useful for studying the isotopies of diffeomorphisms
as well as symplectomorphisms. And the equivalence between the two theories is expected to play an important role in the classification of symplectic four manifolds, especially those with torsion canonical classes.
Recently, it has been shown that smooth Lefschetz fibrations
provide a link between the topology of symplectic four manifolds,
the geometry of the moduli space of curves and the algebra of
the mapping class groups. The investigator plans to explore the
beautiful and rich interplay to advance understanding
of all these objects.

An n manifold is a space that locally looks like Euclidean space
of dimension n. For example, the space-time universe we live in
is a four manifold. A symplectic structure
is a very basic structure that underlies
almost all the equations of classical and quantum physics.
A symplectic four manifold is a four manifold with
a symplectic structure. Thus symplectic four manifolds
play a central role in mathematics and physics.
The fundamental problem is to classify all symplectic
four manifolds. The investigator aims to gain some understanding of the general shape
of symplectic four manifolds.